Gordon Research Conference on the Chemistry and Physics of Fabrication Microstructure

This grant is being made for subsidies that will allow greater participation of graduate students in the 1986 Gordon Research Conference in the Chemistry and Physics of Microstructure Fabrication.